COLLABORATIVE RESEARCH: Genomic outcomes of repeated hybrid speciation

Species that arose through hybridization provide a unique opportunity to examine the origins of biotic diversity, because the genomes of hybrid species contain evidence of past evolutionary processes. This project will examine the process of hybrid speciation in four distinct evolutionary lineages of a well-studied butterfly. Comparison of the genomes of the lineages will be used to identify portions of the genome that are under natural selection and assess the extent to which the selective processes underlying speciation are homogeneous and repeatable or varied. The genomic data will be linked with detailed ecological information to increase the biological interpretation of the results.

This project will result in the most comprehensive examination to date of the genomic outcomes of hybridization. Broadly applicable statistical methods for genome-level DNA sequence analysis will be developed and implemented in freely available software. The project will provide training for undergraduate, graduate, and postdoctoral scholars, outreach programs for K-12 students and educators, training in natural history for interested community groups, and contributions to public education about evolution and genetics.